Mathematical Sciences: Set Theory and Large Cardinals

The investigator will study several topics in set theory, primarily concerning the core model and its applications. The major aim is to generalize the core model, first to include everything up to Woodin cardinals, and then to include Woodin cardinals as well. Preliminary results have revealed the probable structure of this core model, and the main remaining problem is to find a condition on the extenders in the core model which will ensure that iterated ultrapowers of the core model are well-founded. Other problems include questions related to the singular cardinal hypothesis, to infinitary Ramsey theory, and to the existence of definable cofinal sequences witnessing the singularity of an infinite singular cardinal. Set theory is usually considered the foundation of all mathematics, so studies of this kind are in a sense exploring the limits of mathematical possibility. What axioms about sets can be trusted as a sound foundation? What economies of proof can be achieved by using stronger set theoretic assumptions? Questions such as these are the motivating forces of this and other projects in set theory.